GREPSEC III: Underrepresented Groups in Security Research

This proposal provides funding for the third GREPSEC: Underrepresented Groups in Security Research workshop, which will held in May 2017, in San Jose CA. This day-and-a-half-long workshop intended for women and underrepresented minorities in computer security and privacy, will be co-located with the IEEE Computer Society's Security and Privacy Symposium, the premier conference in security.

The broad goal of the workshop is to increase the number of women and underrepresented minorities in computer security research. Security is a wide field, encompassing network security, operating system security, language-based security, forensics, privacy, as well as legal and policy issues. The goal of the organizers is to encourage Ph.D. students who are female and from underrepresented groups to choose security as their field of specialization. Their approach is to show the wide range of problems within the field and how women and underrepresented groups are working towards solving those problems.